Travel Grant for Junior Researchers for Program on Stochastic Processes in Communication Science; Cambridge, United Kingdom

This award provides travel funding to increase US participation in the
half-year program on Stochastic Processes in Communication Sciences at the
Isaac Newton Institute at Cambridge University, January 11 through July
2, 2010. The program aims at the exposition of the latest developments in
mathematical sciences that sit at the boundary between the disciplines of
stochastics and communications. The program will bring together experts
from the mathematics, probability, engineering, and computer science communities, to advance the field and identify important research directions. Up
to twenty Visiting Fellows will be in residence at any time through the period
of the program, and additional Program Participants will be invited for
shorter periods. Four transversal workshops, a satellite workshop for young
researchers and several shorter events are being organized, the primary ones
being:
(1) New topics at the interface between probability and communications
(11 - 15 January 2010);
(2) Stochastic Networks (22 - 26 March 2010);
(3) Spatial Networks (6 - 9 April 2010);
(4) Satellite meeting for young researchers
(At ICMS, Edinburgh, 7 - 11 June 2010);
(5) Statistics of Networks
(21 - 25 June 2010).
The NSF funding will be used to facilitate the interaction of young US
researchers with the top researchers in these areas who will be in residence
at the Newton Institute during this program, by supporting the travel of
junior researchers (graduate students, post-docs, and faculty members at
most seven years beyond Ph. D.), woman researchers and researchers from
underrepresented minorities.